Workshop on Artic Engineering to be held in Fairbanks, Alaska, between May and August of 1991

This project is a workshop on Problems in Arctic Engineering to be held at the University of Alaska at fairbanks between U.S. and Soviet Engineers. The principal theme of the workshop is the problem of engineering projects in a cold region which contains permafrost. The results will be applicable to other cold regions of the country.